Novel: Guided Wave Lenses in GaAs Substrates Using Embedded Low-Index Waveguide Structures

This proposal offers a new approach to opto-electronics by the exploration of guided-wave lenses for collimating, imaging and Fourier transformations. The method involves decreasing the refractive index of the lens zone, rather than increasing it as is conventionally done. While the idea may be difficult to implement, if successful, such lenses could have an important effect on the production of integrated optical modules. The investigator intends to fabricate the lenses lithographically to form a lens pattern on a GaAs/GaA1As waveguide. To address the problem of rough and non-vertical walls the investigator has already collaborated with colleagues at U.C. Santa Barbara and at TRW. He will carry out very detailed and careful comparisons with existing lens fabrication methods as well as performance characteristics.